Rescheduling Disrupted Production Systems

Matchup scheduling is a strategy for overcoming disruptions in large, complex scheduling systems. It assumes that a preschedule has been constructed offline to set material and labor schedules. While operating the system, a disruption, such as machine breakdown or material unavailability, has rendered the preschedule obsolete. Matchup scheduling reconstructes a small section of the preschedule resulting in a feasible, near-optimal schedule. To execute this strategy, the schedule beyond a selected matchup time is not altered. Jobs on a subset of machines are rescheduled with the objective of matching up with the preschedule at the matchup time. That is, all inventories and machine setups should be as if the disruption had not occurred. It is assumed that this is possible due to slack in the preschedule for the disrupted family of machines. It has been shown that, under quite general conditions, such a process can be carried out without loss of optimality. It is the intent of this project to enhance this strategy by (1) applying new theory to better choose the matchup time, and (2) enhancing the methods used for reconstructing the schedule section. The approach will be evaluated against optimal schedules or bounds on optimal schedules.//